Acquisition of a Transmission Electron Microscope

This proposal requests funds toward the purchase of a JEOL model JEM-1210 Transmission Electron Microscope (TEM) equipped with a high resolution video camera, a digital image archiving system, and image processing software. Equipment that will directly support the operation of this TEM is also requested. This instrument will replace an aging Philips 201 microscope currently housed in the Biology Microscopy Facility at the University of Utah. Although the Philips 201 TEM was a capable microscope in its day, it is now 16 years old and suffers from continual mechanical and electrical breakdowns. Components are no longer manufactured to support this instrument making it a challenge to keep the microscope operational. It is likely that the Philips 201 microscope will fail permanently in the near future. The requested TEM will have a dramatic impact on the research programs of many faculty at the University of Utah. A minimum of thirteen faculty in the Department of Biology alone are pursuing research programs that focus on structure/function relationships at the cellular or subcellular level. For example, the microscope will be used by researchers in the Biology neuroscience group to 1) analyze connectivity changes in C. elegans mutants defective in neurite outgrowth, synaptic specificity or synapse formation, and 2) to study the cellular contacts among developing neurons in grasshoppers and flies. Other research groups in Biology will use the microscope in immunogold-labeling studies to examine the structure and localization of molecules involved in cell adhesion, neuronal differentiation, neurotransmission, cytoskeletal function, cell division, development of cell polarity and bacterial flagellar motility. In addition, a number of investigators use a genetic approach to study the early development of multicellular plants and animals. These investigators need a transmission electron microscope to perform morphological analyses on mut ants arrested in specific developmental stages. Many of the projects listed above will require specialized features that are only available on a state-of-the-art transmission electron microscope like the JEOL JEM-1210. The research needs of our existing faculty, staff, and students simply cannot be met by the antique Philips 201 microscope currently available in the Biology Microscope Facility. The University of Utah has committed 50% in matching funds toward the purchase of a transmission electron microscope. This commitment indicates the high degree of institutional priority for our request. In addition, the Biology Department has guaranteed 1) full salary support for the facility manager, Dr. Edward King, 2) 50% support for a full time microscopy technician for two years, and 3) funds for a four year service contract. Together, these contributions represent an institutional commitment of greater than 50%. The JEOL JEM-1210 will be part of a core facility used by faculty, staff, graduate and undergraduate students in the Biology Department and by researchers from other departments and colleges on the University of Utah campus. The Biology Microscopy Facility already maintains a heavily used laser scanning confocal microscope and a scanning electron microscope. The addition of a modern transmission electron microscope to the facility will enhance campus wide research efforts addressing a variety of basic biological questions.